Research Experiences for Undergraduates in Chemistry at Duke University

9322180 Baldwin Duke University Dr. Steven W. Baldwin and other members of the Chemistry Department of Duke University are being funded for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, ten undergraduates will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry.